Real Time Computing: Issues and Applications

The department of Computer and Information Science at the University of Massachusetts at Amherst will continue to develop the infrastructure created with their prior CER award, with the emphasis on supporting their research real-time computing. This research will be concentrated in the following areas: real-time communication, real-time distributed operating systems, real-time artificial intelligence, cooperative/distributed problem solving, robotic manipulation and geometric reasoning computer vision and robot navigation, and special-purpose architectures. The groups involved in the various research areas will have a rich interaction, so that the software developed by the systems group will be used in the AI, robotics and vision application areas, and these areas will in turn give valuable feedback to the systems group. Equipment to be purchased in support of the research includes upgrades to current workstations, an upgrade for the Sequent Symmetry multiprocessor, as well as specialized equipment for robotics and vision.